Developing Teachers' Capacity to Promote Argumentation in Secondary Science

This project will produce insights into the challenges teachers face in modifying their teaching in the substantial and complex ways demanded by the Next Generation Science Standards. This project will develop and study a program of professional development to help middle and high school science teachers support their students to learn to argue scientifically. The program includes strategies for organizing science activities to create contexts where students have something to argue about and teaching practices that promote sustained, productive argumentation among students. Results will document what aspects of these new practices teachers find easier and more difficult to implement, and how challenges are influenced by the urban schooling contexts in which project teachers work. The project will also further our understanding of how site-based professional development can be structured to support teacher learning and improvement.

The project is a longitudinal study of a cohort of 30 secondary science teachers from an urban school district in California. The professional development (PD) program will be organized around intensive summer institutes followed by 2 school-based lesson study cycles each year, facilitated by trained coaches. The PD work will be carried out over three years. All PD sessions will be recorded for interaction analysis to identify variations in coaching and teacher participation and the influences of such variation on teacher learning. Repeated measures of teachers' conceptions of argumentation will be given over 3 years as a measure of teacher learning. An observation protocol will be developed and used to measure teacher talk and its change over time. A sub-sample of teachers' classrooms will be video recorded to produce a longitudinal record for interaction analyses to link teacher talk to patterns of student argumentation. The third year of the project will add measures of student learning and link them to variations in teacher practice. The final year of the project will produce retrospective analyses that link pathways in teacher learning to features of the PD program and teachers' participation. The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.